Northern New Mexico Astronomy Laboratory

The focus of this project includes building an observatory to serve two new courses in astronomy and planetary science; enhancing post-secondary science education for all students by bringing an astronomy component to the basic sciences curriculum; increasing awareness of the different fields of science to students majoring in the Associate of Science degree; and providing a resource for training the laboratory skills in planetary and astronomy science to area teachers in the elementary, middle, and high schools. The department is building an observatory with remote access capability to area schools. This upgrade is being done through a 16 inch Meade Schmidt-Cassagrain telescope in conjunction with a 416 CCD Autoguider/Imager. The system is connected through a computer to a network of computers in the area. Four 16 inch Dobsonian telescopes are being used for experiencing the original incoming photon from an astronomical object and enhancing the hands-on observation techniques for the students. This project is introducing astronomy to a remote area of the country, with a high concentration of many minority populations, and taking advantage of the clear skies of northern New Mexico.